Student Travel Support for the Thirteenth Symposium on Networked Systems Design and Implementation (NSDI 2016)

This award is to assist approximately 25 US-based graduate students to attend the Thirteenth Symposium on Networked Systems Design and Implementation (NSDI 2016) in Santa Clara, CA, on March 16-18, 2016. The conference focuses on the design principles of large-scale networks and distributed systems and the common challenges across diverse systems. This conference brings together researchers from across the networking and systems communities including computer networking, distributed systems, and operating systems to foster cross-disciplinary approaches and to address shared research challenges.

The purpose of this trip is to provide students with the opportunity to interact with more senior researchers in the field, and exposes students to leading edge work in the field. The support requested in this proposal will enable the participation of students who would otherwise be unable to attend NSDI.